Issues in the Applied Analysis of Markets

Abstract: Issues in the Applied Analysis of Markets.

This proposal has several parts. The first is to extend prior models of demand
systems in characteristic space. These models were primarily developed to
provide a tool that enables the user to analyze (own and cross) price and
characteristic elasticities of demand. The same models can (and have) been
used to evaluate the demand for and the utility derived from new goods, but
their implications in those contexts are questionable (these include applica-
tions like evaluating the returns to innovations, or constructing price indices).
This is because some of the model's properties vis a vis the evaluation of new
goods are "counterintuitve".

We consider a change in the demand model that gets rid of these coun-
terintuitive implications, and then compare alternative ways of evaluating
new goods. One of the alternatives is \hedonic" analysis; a technique which
is currently used to correct the CPI for new goods bias. In doing this com-
parison I will provide a detailed analysis of alternative ways of computing
hedonic corrections. Hopefully this will be of use to the statistical agencies.

The second section of the proposal seeks to extend methods for computing
and analyzing dynamic games to allow for asymmetric information. We focus
on models which can detect and analyze collusive outcomes, and show how
the learning and artificial intelligence literatures can help provide a simple
tool for such an analysis.

The third section of the proposal outlines a new and relatively simple
procedure for estimation and subsequent empirical analysis of oligopolistic
markets when either asymmetric information, or dynamic considerations, are
important. I hope to explore the range of application and performance of
this technique. The technique was developed while I was trying to sort out
research strategies for two new empirical projects, one on the demand for
pharmaceuticals and one on deregulated electric utility markets. The two
final sections of the proposal outline these projects.

Both empirical projects are joint with colleagues who have worked exten-
sively on the industries studied. Our goal in the project on the demand for
pharmaceuticals is to understand how past experience, marketing, and infor-
mation on product performance, interact with other market characteristics
to shape demand. We are particularly interested in the impact of advertis-
ing on demand and on welfare, and on how recent institutional changes, like
the development of the Over the Counter market for some durgs, impact on
demand and welfare.

The project on deregulated British electric utility markets will initially
focus on getting estimates of start up and capital costs. This should enable
us to provide measures of profitability that take account of these costs. This,
in turn, will enable us to quantify the incentives to invest in more generating
capacity that are provided by the institutions which determine the newly
derregulated market outcomes. Later we hope to engage in a more in depth
analysis of the relationship between different aspects of these institutions
and the price and quantity allocations that are likely to be generated by the
market.